Asymmetric Reactions of Oxaziridines

With this award, the Chemical Synthesis program of the Chemistry Division is supporting the research of Professor Tehshik Yoon of the Department of Chemistry at the University of Wisconsin-Madison. Professor Tehshik Yoon will develop new ways to control the synthesis of aminoalcohols. These groups are responsible for the selective binding of many drugs and drug-like molecules to biological receptors. In order for a drug to bind tightly and with high selectivity for one target over countless others in a cell, these N and O groups must be introduced with a specific spatial orientation. The methods developed in this project employ an innovative strategy that allows for exquisite control over the molecular shape of aminoalcohols using inexpensive, non-toxic iron and copper catalysts.

Due to the importance of nitrogen- and oxygen-containing compounds in biological chemistry, this work has the potential to impact the manufacture and discovery of a wide variety of medicines, agrochemicals, and biomaterials. Given that the reactions involve sustainable base-metal catalysts, these methods could also result in the reduction of toxic wastes in the manufacturing of aminoalcohol-based compounds. In addition, this project will enable the development of new strategies to use social media in scientific and educational outreach, including to populations historically underrepresented in the sciences.